SGER: Lab-Scale Evaluation of Electro Chemical Remediation of a Contaminated Clayey Soil Using Alternating Current Electrical Signal

0402772 Khire The proposed alternative remediation technology using alternating current (AC) may significantly reduce the remediation cost and shorten the treatment period for remediation of contaminated soils or sediments located in vadoze or saturated zones. In the proposed research, two separate large-scale bench-scale tests on a clayey soil contaminated with: (1) phenanthrere (a PAH); and (2) lead will be subjected to amplitude and frequency modulated AC signal. The applied AC signal will be modulated to "tune up" with the net capacitance of the soil. This will cause oxidation-reduction reactions during the charging and discharging of the hypothesized nano-capacitors made up of negatively charged clay particles and positively charged cations adsorbed on the clay particles.